Collaborative Research: Investigating Immigrant Students' Pathways from Kindergarten to College and into the STEM Workforce

This project aims to serve the national interest by studying ways to broaden participation in STEM education and careers, particularly for youth of color. To do so, it will complete a research study focused on immigrant youth of color in New York City, which has large immigrant communities and the largest public-school system in the nation. The project is designed to examine how immigrant youth of color form their STEM identities and navigate pathways from kindergarten into the labor force. The project includes three studies. The first study will use a large dataset that follows students from NYC public schools into the City University of New York two-year and four-year colleges. The goal of this study is to identify points at which many immigrant students move away from a STEM pathway. The second study will be based on interviews with students and their families to understand how they use information and resources to make decisions about their persistence on STEM pathways. The final study is designed to use the results from the first two studies to provide policy and practice recommendations for key educational stakeholders.

Using a mixed methods approach, the project team will address three research questions that correspond to the three studies described above: (1) What key educational stages are critical points along the STEM pathway? (2) How are decisions made and knowledge gathered by students and families at these key points? (3) How can insights from these analyses inform programmatic and policy interventions to increase STEM inclusion among immigrant youth of color? To address research question one, the project team will use techniques such as growth curve and hierarchical regression modeling to identify educational stages where immigrant youth of color leave STEM pathways, explore potential determinants that might explain departures, and identify potential disparities in the economic returns of STEM credentials. To address the second research question, the project team will use initial findings to identify points of greatest divergence along STEM pathways. The researchers will then collect and analyze qualitative data from 30 immigrant families with children who have STEM interests. Prompts will relate to the ways in which families navigated access to information, resources, decision-making, and goal setting associated with the pursuit of STEM fields. Finally, the project team will identify real-world implications of the findings and disseminate them to local, state, and federal stakeholders. By addressing these three research questions, the project is designed to promote access among immigrant youth of color to STEM education and career preparation, which can ultimately result in a more diverse and productive STEM workforce. The NSF IUSE: EHR Program supports research and development projects to improve the effectiveness of STEM education for all students. Through the Institutional and Community Transformation track, the program supports efforts to transform and improve STEM education across institutions of higher education and disciplinary communities.